I-Corps: Exploring Commercial Feasibility of Semantically Rich Cloud Service Broker solution

Researchers have developed a software framework that helps to automatically define, acquire and consume cloud based services. A simple prototype demonstrating some of these features was successfully demonstrated at a recent cloud computing conference. Researchers are now looking to address some key open questions and create a more robust version of this prototype or a "cloud broker" tool that will enable users to select the best suited service (or a combination of services) from the plethora of services/providers in the market. Unlike much of the existing work, this will involve (automated) negotiation between the service provider and the consumer to arrive at a machine understandable and processable service-level agreement (SLA). Such a system addresses a key identified gap in existing cloud technology. The research team plans to use Semantically Web (W3C standard) languages to build the prototype. They have developed ontologies and rules to describe cloud services, requirements, security and privacy. This solution may have the ability to capture and leverage federal cloud standards currently in development.

Customers are currently acquiring cloud services manually by hiring consultants to review and compare the services and conditions (terms, pricing, compliance, security etc.) being offered by the cloud providers, establish SLAs, and then monitor SLAs during usage. This is a very time consuming and human intensive process which reduces return on investments and impacts security and privacy. As a result, large organizations with complex enterprise policies are unable to use full potential of the cloud. There is a market need for a well-researched, tested solution that addresses these barriers to cloud adoption.